NASA IAA for the National Solar Observatory

This is the governing cooperative agreement for an interagency agreement with NASA. National Solar Observatory will carry out activities per various specific agreements.